National Sea Grant College Program, Ocean Science Fellows

9408943 Griswold Funds are transferred to NOAA to support two NOAA Sea Grant Fellows within the NSF Ocean Sciences Division. Two highly qualified students will work with OCE program staff for one year. Valuable experience will be gained by working on ocean science research policy and administration. One student will work with the Oceanographic Technology & Interdisciplinary Coordination Program and the other with the Biological Oceanography Program. The Fellowship Program is administrated through NOAA's Office of Oceanic Research Programs.